Reversible Cell Capture and Release for Cell Separation

This NSF award by the Chemical and Biological Separations program supports work by Professor Yong Wang to apply nucleic acid aptamers to create a cell separation method. Cell separation has played an essential role not only in basic biological research, but in clinical diagnosis. Current methods for cell separation are mostly dependent on antibody-mediated cell recognition. However, antibodies or antibody-functionalized systems often exhibit limitations due to their easiness of losing functions and difficulty of reversing antibody-cell interactions. These shortcomings can significantly limit downstream cell analysis and applications. Thus, there is a clear need to discover and engineer alternative biomolecular ligands for cell separation applications. Because nucleic acid aptamers are different from antibodies and have numerous merits such as high affinity and specificity, great tolerance of harsh conditions, and easy synthesis with a standard chemical procedure, we hypothesize that nucleic acid aptamers can be used to develop a new method for cell separation. To test this hypothesis, we will systematically investigate biomolecular interactions between aptamers and cell receptors, understand intermolecular recognition in a multicomponent system, and explore the aptamer-mediated cell capture and release for cell separation.

The success of this research project will not only enable the development of a novel, universal cell separation method, but also enrich the current knowledge of biomolecular recognition and provide resourceful information for nucleic acid research. In addition to these technological impacts, this program will make impacts on human resource and education. First, this project will provide students with an interdisciplinary environment to learn biomolecular engineering, kinetic analysis, material development, and cell separation. The students will be able not only to acquire hands-on research skills, but also to learn analytical, communication, collaboration, and innovation skills. Second, the PI will initiate a new outreach program by collaborating with local high schools and continuously enroll K-12 students and teachers to the lab to learn cutting-edge techniques. Third, the students' research findings will be widely disseminated through publications in peer-refereed journals and presentations at national/international conferences.